CAREER: Applications of Convex Programming in Combinatorial Optimization: A Mathematical, Algorithmic and Computational Study

The semidefinite programming problem (SDP), including implementation of numerically stable interior point algorithms, mathematical properties of the feasible sets, and in particular applications of SDP in combinatorial optimization are being investigated. First, two versions of the primal-dual interior point SDP algorithm are being implemented. One version is in MATLAB and is intended as an easy to use and change software for small to medium size problems. Another implementation is in FORTRAN 90 and is intended for high performance parallel and vector/pipelined machines and is meant to solve large scale problems. In addition feasibility of active set methods for SDP is being investigated. Next applications of SDP in general 0-1 integer programming problems are being studied. The feasibility of branch and bound SDP techniques which solve an SDP problem at each stage but may require far fewer branchings overall is being investigated. If such an approach is found to be practical, general purpose programs will be developed. In theoretical investigations, the following applications of SDP are being studied: parallel computational complexity of the Lovasz number of graphs, approximation algorithms for the minimum vertex cover problem, applications to the general matching problem, and polyhedrality of the feasible sets of SDPs under affine transformations. The connection of primal--dual method of linear and semidefinite programs to the problem of quadratically constrained quadratic programming is being investigated. In addition, those cones are being investiagted whose associated optimization problem leads to complementarity relations that are bilinear forms; programming, quadratically constrained quadratic programming and SDP are examples of such problems. For teaching plans, active participation in helping RUTCOR establish a masters program is planned. Courses in semidefinite programming and in computational biology in graduate school, and a course designed to survey various software available for optimization problems are being developed. At the undergraduate level teaching of courses in the affiliated departments of computer science, mathematics and statistics is expected. Also a textbook on SDP is in preparation.